Bioseparations in Multiple Support Magnetically Stabilized Fluidized Beds

The PI proposes to study the use of a magnetically stabilized fluidized bed (MSFB) to alleviate problems associated with the separation and purification of biochemicals obtained from fermentation broths and similar feed streams. To develop this continuous separation process, the PI plans to focus on two major objectives: - To gain an understanding of the behavior of a mixture of magnetic and nonmagnetic support materials in a liquid fluidized bed under an applied magnetic field. - To develop a new mode of using these liquid MSFBs as a counter-current contractor for protein purification. By using two materials in a MSFB, one can possibly eliminate the need to develop a new magnetic support material for each new biochemical separation to be performed. This proposal was considered by the Review Panel to be highly innovative and recommended funding for one year in accordance with the first year budget submitted with the proposal. The PI is considered to be well qualified to carry out the proposed research and I recommend funding in accordance with the Panel recommendation.